A Total Station for Use in Studies of Quaternary Tectonics, for Precise Local Positioning of GPS Sites and for Educational Studies

This award provides for half the funds needed to acquire a so- called Total Station, which is a theodolite for measuring angles, a ranging device for measuring distances,and a minicomputer to compute the data in the field. Using a Total Station it is possible to construct very accurate topographic maps,and other kinds of maps of surficial features on the earth's surface. The PIs intend to use this Total Station as a critically important part of their active neotectonic research program; they also plan to use it in the teaching of undergraduate and graduate courses. This device is now considered to be necessary for neotectonics studies where it is important to gather efficiently and accurately data recording positions and elevations on the earth's surface. MIT is committed to providing the additional funds required for this acquisition.